Engineering Research Equipment: Organometallic Vapor-Phase Epitaxy Reactor with Ultrahigh-Vacuum Interface and Sample Manipulator

Equipment for the study of organometallic vapor-phase epitaxy (OMVPE) of several semiconductors, including gallium arsenide and cadmium telluride, on such substrates as gallium arsenide or silicon, is being upgraded. The upgrade consists of an OMPVE reactor with an ultrahigh-vacuum (UHV) interface, and a new manipulator for the existing UHV chamber. This will enable the study of surface reactions of organometallic compounds on the crystal surfaces actually found in the OMVPE process. The improved apparatus will be used to study surface chemistry of II-VI compounds, heteroepitaxy of semiconductors, and OMVPE reaction kinetics.//